Journees Peter Shalen - A Conference on 3-Dimensional Topology and Its Role in Mathematics

Abstract

Award: DMS-0603270
Principal Investigator: Marc E. Culler, Steven Boyer

The subject of 3-manifold topology has a long history of deep and
interesting interactions with other parts of mathematics. The
complexity of these connections has increased with time, as the
subject developed, and it has exploded in recent years. The
coincidence of this explosion with the recent solution of several
of the major outstanding problems in the area make this a good
time for reflection on its relationship to the rest of
mathematics. This grant will support participants in a
conference, to be held at CRM in Montreal, which aims to bring
together a varied group of leading researchers whose work
demonstrates deep connections between 3-manifold topology and
other areas of mathematics. The speakers will include leading
researchers in areas such as: geometrization of 3-manifolds;
combinatorial group theory and coarse geometric properties of
groups; properties of random 3-manifolds and asymptotic
properties of hyperbolic surfaces; Floer homology,
Khovanov-Rozansky homology; 3-manifold invariants arising from
contact structures; character varieties; and Dehn surgery. The
conference will honor Peter Shalen, whose work has been a major
force in bringing many different aspect of mathematics to bear on
the study of 3-manifolds, and in expanding the influence of
3-manifold topology into other areas.

Throughout history the interaction between mathematics and
science has been characterized by the mysterious phenomenon that
mathematical ideas which are developed with no specific
application in mind turn out to be perfectly suited for future
applications to science. For example, differential geometry,
which provided the ideal mathematical foundation for Einstein's
general relativity theory, was developed much earlier by
mathematicians who could not have anticipated the way in which it
would be applied in physics. On a smaller scale, there is a
similar phenomenon involving different areas of mathematics. A
recent example of this, which is directly related to the topic of
this conference, is provided by Perelman's proof of Thurston's
Geometrization Conjecture. This conference aims to facilitate
these sorts of unexpected fruitful interactions between different
areas of mathematics. The central topic of the conference is the
study of 3-dimensional spaces. Speakers have been selected whose
work involves significant new applications to this subject of
ideas which originate from a wide range of other areas of
mathematics.

The conference web site is
http://www.crm.umontreal.ca/cal/fr/mois200606.html.